Deep Ocean Ventilation Through Antarctic Intermediate Layers (DOVETAIL)

9528805 Schlosser The propoqed project is a multi-institutional integrated study of the outflow of newly formed bottom water from the Weddell Sea and its dispersion into the South Atlantic Ocean. It builds upon earlier successful studies of the inflow of intermediate water masses into the Eastern Weddell Sea, their modification within the Weddell Gyre, and their interaction with bottom water formation processes in the western Weddell Sea. The study is called Deep Ocean Ventilation Through Antarctic Intermediate Layers (DOVETAIL) and includes six components involving hydrographic measurements, natural tracer experiments, and modeling studies. The study will be centered east of the Drake Passage where water masses from the Weddell Sea and the Scotia Sea come together in the Weddell-Scotia Confluence, and will be carried out in cooperation with the national antarctic programs of Germany and Spain. The study has four related objectives. The first is to assess the quantity and the physical and chemical characteristics of Weddell Sea source waters for the confluence. The second is to describe the dominant processes associated with spreading and sinking of dense antarctic waters within the Weddell-Scotia Confluence. The third is to estimate the ventilation rate of the world ocean, and the fourth is to estimate seasonal fluctuations in the regional ocean transport and hydrographic structure and to assess the likely influence of seasonal to interannual variability on rates of ventilation by Weddell Sea waters. Ventilation of the deep ocean -- the rising of sub-surface water masses to the surface to be recharged with atmospheric gases and to give up heat to the atmosphere -- is a uniquely antarctic phenomenon that has significant consequences for global change by affecting the global reservoir of carbon dioxide, and by modulating the amount and extent of seasonal sea ice in the southern hemisphere. This component of DOVETAIL will make measurem ents on both transient and steady-state tracers to examine the sources, pathways, and average residence times of the various water masses in the confluence region. Tritium (an isotope of hydrogen), helium-3, helium-4, carbon-14, oxygen-18, and various chlorofluorocarbons will be used to differentiate the sources of confluence water (e.g. precipitation, glacial melt water, deep water of Atlantic origin), to determine their average residence times at the surface, and to use the tracer distributions as input to model simulations of the bottom water formation process ***